Elasticity, Growth, and Stability

Goriely
DMS-0605029

The general theme of the project is the study of growth,
structure, and function in physical and biological systems
through the use, and development of, nonlinear elasticity theory
and the associated methods of applied mathematics. The project
is divided into three main lines of interconnected research: (i)
the analysis and modeling of elastic growth in soft materials,
such as biological tissue; (ii) the biomechanics of microbial
systems including the study of force-driven penetration
mechanisms, such as those arising in fungi that destroy crops;
and (iii) the dynamics and stability of various elastic rods,
cables, and pipes having important engineering applications. For
the first theme, the investigators and their students study the
mechanical consequences of growth and its potential to either
generate instabilities through changes in geometry and stresses,
or to act as a mechanism to stabilize and regulate physical
properties. The goal of these studies is to gain insight into
the fundamental coupling between growth and stress in many
biological systems. The second theme of microbial biomechanics
involves the mathematical modeling of both bacterial and fungal
systems. The investigators formulate and analyze mechanical
models of growing micro-organisms in order to understand their
overall structure (e.g. the formation of appressoria in the
rice-blast fungus) and their ability to invade host tissues by
penetration (as found in many fungi), as well as the growth and
structural changes exhibited by filamentary bacteria, such as
those that are a natural source of antibiotics. The description
of these organisms combines a general formulation of membrane
growth (based on the first research theme), the elastic modeling
of cell walls undergoing large deformations, and the use of
plasticity and fracture theory to describe penetration processes.
The third theme of elastic rod dynamics involves the study of
elastic tubes conveying fluids, and the dynamics of rods with
constitutive coupling between twist and tension (hemitropic rods)
-- a functionality that is relevant to the design of crane cable
and other braided structures. The analysis of filament
instabilities is carried out through the use and extension of the
nonlinear analysis techniques developed by the investigators in
their previous work.

The project concerns the dynamics of filamentary structures
such as pipes and rods and the physical analysis of growth
mechanisms and invasion appearing in biological systems. It is
highly interdisciplinary in nature, cutting across the fields of
applied mathematics, mechanical engineering, microbiology, and
biomechanics, and addresses questions of both practical
importance and mathematical interest. The themes have a broad
range of applicability in biology (morphogenesis), in biomedical
engineering (analysis of soft tissues, their mechanical
regulation and function), in understanding fundamental processes
in biological invasion such as fungal penetration of tissues, and
in classical engineering problems (pipes conveying fluids,
instabilities in drilling). The project also provides many
attractive training experiences at different levels suitable for
graduate and undergraduate students from diverse backgrounds.
These include opportunities to synthesize mathematical modeling
with hands-on experimentation through the use of the Applied
Mathematics Program's unique experimental facilities.